Quanta : A Quality of Service and Adaptive Networking Toolkit for Supporting Advanced Collaborative Environments over Optical Networks

QUANTA is a toolkit for supporting TeraNode applications over optical
networks.

Getting terascale collaborative applications to work optimally on a high
speed optical network is not as simple as connecting ones computer to the
Internet. Today's protocol stacks and scientific applications cannot and do
not know how to utilize this extreme level of bandwidth even when it is
available. We intend to address this problem with Quanta, a cross-platform
adaptive networking toolkit for supporting the extraordinary networking
requirements of terascale collaborative applications. Quanta will consist of
a collection of novel networking protocols that are designed for handling a
wide variety of extremely high bandwidth application traffic flows; and a
Quality of Service (QoS) architecture to flexibly control these protocols
and support electronic and optical QoS mechanisms such as Generalized Multi
Protocol Label/Lambda Switching (GMPLS). The goal is to provide an easy to
use system that will allow programmers to specify the data transfer
characteristics of their application at a high level, and let Quanta
transparently translate these requirements into the appropriate transmission
protocol and network QoS services.